SI2-SSI: Advancing and Mobilizing Citizen Science Data through an Integrated Sustainable Cyber-Infrastructure

Citizen science engages members of the public in science. It advances the progress of science by involving more people and embracing new ideas. Recent projects use software and apps to do science more efficiently. However, existing citizen science software and databases are ad hoc, non-interoperable, non-standardized, and isolated, resulting in data and software siloes that hamper scientific advancement. This project will develop new software and integrate existing software, apps, and data for citizen science - allowing expanded discovery, appraisal, exploration, visualization, analysis, and reuse of software and data. Over the three phases, the software of two platforms, CitSci.org and CyberTracker, will be integrated and new software will be built to integrate and share additional software and data. The project will: (1) broaden the inclusivity, accessibility, and reach of citizen science; (2) elevate the value and rigor of citizen science data; (3) improve interoperability, usability, scalability and sustainability of citizen science software and data; and (4) mobilize data to allow cross-disciplinary research and meta-analyses. These outcomes benefit society by making citizen science projects such as those that monitor disease outbreaks, collect biodiversity data, monitor street potholes, track climate change, and any number of other possible topics more possible, efficient, and impactful through shared software.

The project will develop a cyber-enabled Framework for Advancing Buildable and Reusable Infrastructures for Citizen Science (Cyber-FABRICS) to elevate the reach and complexity of citizen science while adding value by mobilizing well-documented data to advance scientific research, meta-analyses, and decision support. Over the three phases of the project, the software of two platforms, CitSci.org and CyberTracker, will be integrated by developing APIs and reusable software libraries for these and other platforms to use to integrate and share data and software. Using participatory design and agile methods over four years, the project will: (1) broaden the inclusivity, accessibility, and reach of citizen science; (2) elevate the value and rigor of citizen science software and data; (3) improve interoperability, usability, scalability and sustainability of citizen science software and data; and (4) mobilize data to allow cross-disciplinary research and meta-analyses. These outcomes benefit society by making citizen science projects and any number of other possible topics more possible, efficient, and impactful through shared software and data. Adoption of Cyber-FABRICS infrastructure, software, and services will allow anyone with an Internet or cellular connection, including those in remote, underserved, and international communities, to contribute to research and monitoring, either independently or as a team. This project is also being supported by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments.